Collaborative Research: Sophisticated Learning and Strategic Teaching in Repeated Games

Ho #0078853

Our research addresses how people and organizations learn from experience
in strategic situations like bargaining, coordinating joint actions
(teamwork), choosing prices and features for new products, bidding in
auctions, etc. In previous research we discovered a mathematical formula
which explains how people appear to learn from experience, but the
numerical details of the formula (its "parameters) seem to vary from
situation to situation, as if people are learning in different ways. We
therefore propose to explore why these parameters seem to vary. In
addition, most mathematical theories of strategic learning assume that
people only look back at past experiences. We also propose to extend these
theories to allow for people who realize that other people are learning
from experience, and are able to therefore outguess what others will do
based on what happened in the past. If players are "sophisticated", in
this sense, it pays for them to take actions that are not perfect in the
near-term, to "teach" other players who are learning to take actions which
will benefit the "teachers" in the long-term. This teaching can be
beneficial for the teacher but bad for society (e.g., when firms scare
away innovative competitors by threatening illegal retaliation), or
beneficial for everyone (e.g., when firms reassure others that they can be
trusted). Our research develops a precise mathematical theory of how
sophisticated players behave and when it pays for them to teach. We use
the theory to explain observations from experiments and predicts whether
teaching will occur in new situations.